Travel Support for Young Faculty Members and Postdocs to attend the Symposium on "Stimuli-Responsive Polymers" at the ACS National Spring Meeting, April 6-10, 2008, New Orleans, LA

INTELLECTUAL MERIT: The past two decades have seen a surging interest in the
exploration and exploitation of stimulus-responsive polymers, i.e. macromolecular
materials which, usually reversibly, change at least one of their key properties in response
to an external stimulus such as such as a change in temperature, pH, ionic strength,
solvent, and irradiation with light or electric fields. The possibility to program them with
desired functions clearly distinguishes stimulus-responsive polymers from other
advanced materials with 'traditional' functional characteristics. Demonstrated or targeted
high-level functions such as perception, judgment, movement, and recognition, have
triggered the inaccurate but rather descriptive use of the term 'intelligent materials'. The
combination of fundamental scientific curiosity on the one hand and the broad
technological opportunities that promise to impact virtually all areas of life on the other
define the increasing interest in these materials. The goal of this symposium is to bring
together established experts, scientists at the beginning of their careers, and students from
different disciplines, to share most up-to-date and important research focused on the
design, synthesis, processing and application of stimuli-responsive polymers. Four halfday
oral sessions with about 30 talks will concentrate on (1) Mechanoresponsive
Materials; (2) Responsive Polymers for Bio-Applications; (3) Polymers with Unusual
Sensing Capabilities; and (4) Polymers that Respond to Electromagnetic Radiation.

BROADER IMPACT: All of the funds awarded from NSF will be used to facilitate
symposium attendance by faculty members that are at the beginning of their careers (and
their students) and who might otherwise not be able to attend. Priority will be given to
participants who would like to give oral presentations and from groups that are
underrepresented in STEM disciplines.